Complexity and Design of Transparent Packet Switching Networks

Packet switching has been extensively studied for traffic problems but there has been very little work,
if any, on the complexity and methodical design of packet switching networks. Indeed, in a recent
NSF workshop report, it was stressed that a wide variety of switching system architectures have been
proposed, but little definitive evaluation or comparisons of these architectures have been made under criteria that factor in both performance and cost measures, where technology-dependent and technology-independent factors are clearly separated."
A buffered network model was recently introduced to examine the design and complexity problems in
packet switching networks. Building on this model, the notion of transparency is introduced in the
proposed research as a measure of a buffered network's ability to deliver its packets at a specified set
of traffic rates between its inputs and outputs. The notion of transparency quantifies the ability of
a buffered network to deliver its packets much like the nonblocking property of a circuit switching
network quantifies its ability to provide paths between its idle inputs and idle outputs. The main goal
of the proposed research is to use the notion of transparency to investigate the basic bounds of packet
transmission in packet switching networks, and construct packet switching networks which come close
to meeting these bounds. Such bounds are often imposed on a packet switching network by its topology,
buffer space, and crosspoint and routing complexity. In constrast to circuit switching networks, the
complexity of packet switching networks has escaped the scrutiny of packet switching research so far,
but without any information on their complexity, the performance of packet switching networks cannot
be quantified.
Along with the investigation of the complexity problems, the proposed research will attempt to identify
the types of traffic and assignments for which efficient buffered networks can potentially be obtained,
and actually construct such networks. Informally speaking an "efficient buffered network" is one which
utilizes its crosspoints and buffer space as fully as possible subject to meeting a set of traffic constraints. Both unicast and multicast buffered networks will be investigated. The main tools of the proposed research will be Hall-type theorems, Pinsker's inexplicit combinatorial constructions, and explicit recursive network construction techniques. Inexplicit constructions will be used to establish the optimality and quantify the performance of explicit recursive buffered networks. The researchers anticipate that
the complexity bounds on packet switching and recursive buffered network construction techniques to
be obtained in the proposed research will have a strong impact on the way that packet switches are
designed, and can pave the way for a methodical design of efficient and practical packet switching
networks.